Investigations in Compositional Models Arising in Atmospheric Chemistry

Compositional data arise naturally in several branches of science, including analytical chemistry, geology, biology, medicine, ecology, and manufacturing design. Hence, constrained data are not observed solely in the atmospheric sciences. However, such data are routinely produced in atmospheric chemistry, where an adequate understanding of such data is often critically important to the environment. To optimally extract the information that is in such data, there is need to go beyond the application of established statistical techniques. Some attention should be focused on the development of new statistical methods that are motivated by characteristics that are especially common in atmospheric chemistry data sets. As was eluded to above, one such characteristic is the presence of a constant-sum constraint, which may have been inherent to the data or imposed by the chemist. A collection of statistical methods for handling such data, based principally on log-normal models, has been developed. This project will investigate the use of new parametric and nonparametric approaches to significantly improve this existing methodology. In the parametric setting, an extension of some recent work by the principal investigators will be used with a practical regression model to address problems. In the development of the nonparametric approach, minimum distance methods, coupled with multivariate bootstrap techniques, will be used to suggest point and region estimators and other associated problems is proposed.